Warm Ring Inertial Critical Layer (WRINCL) Renewal

The analysis and interpretation of an eXpendable Current Profiler (XCP) survey and a Richardson Number (RiNo) float time series collected in a near-inertial wave critical layer at the base of a warm core ring will be completed. The study will determine what fraction of the trapped wave energy flux-divergence is lost to turbulent dissipation (mixing).